Shared Knowledge Structures and Equilibrium in Social Choice

Recent advances in social choice theory point to the importance of institutions in leading to consistent and coherent collective outcomes. However, not all instances of social choice can be characterized as taking place under strong political institutions. There is a particular lacuna in the area of internal politics, where topics such as what to do about CFC emissions, what tariff and trade policies should be formed, or how to collectively eliminate weapons stockpiles, are all questions of social choice. Rather than relying on institutional explanations, this research explores a different source of structure: the role of knowledge systems. The complexity of most decision contexts forces participants to rely on knowledge structures such as mental models or cognitive schemas. This research combines cognitively-realistic assumptions about individual preference formation with abstract social choice theory. The resulting research illustrates the importance of shared knowledge structures for collective choices.